NATO-NSF Workshop on Model-Based Simulation of Durability of Materials and Structures

0090252
Inadequate long-term durability of civil engineering
infrastructure has been a major problem with enormous
economic loss to many countries. So far, progress
towards solving the problem has been hampered by the
lack of mathematical approaches among classical-type
durability researches, and lack of interest or
understanding of the qualitative mechanisms among
mathematician and mechanicians. The Workshop will
stimulate dialog between these two groups. The
workshop will be held at Czech Technical University,
Prague, in March or April 2002. Duration of the
Workshop is planned to be 2.5 to 3 days. About 40
participants are expected, of which 15 to 20 will be
from the U.S. Complementary funding from NATO and from
local sources in Prague will be applied.***